Multimedia Mathematics: Across the Curriculum and Across the Nation

The ultimate goals of the project are: cooperative course development activities by at least 144 faculty in mathematics and non-mathematics departments in at least eight colleges and universities in Nebraska and Oklahoma. these activities will bring together the best features of the mathematics reform and the multimedia activities in all of the consortium colleges. these activities will provide both mathematics and non-mathematics faculty with| new math reform/multimedia lessons, curricula and courses that can be offered across the curriculum and across the nation.